Purchase of a Raman Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Colorado--Boulder in the purchase of a Raman spectrometer with a laser excitation source tunable in the visible region. This equipment will enhance research in a number of areas including the following: (a) Investigation of the Interaction between 3-Chlorocatechol and the Active Site of Catechol 1,2-Dioxygenase II; (b) Application of Resonance Raman Spectroscopy for the Determination of the Vibrational Reorganization Energies in Charge Transfer Complexes; and (c) Matrix Isolation (MI) Raman Spectroscopy. Raman spectroscopy is concerned with vibrational and rotational transition in molecules, similar to infrared spectroscopy. The information obtained from a Raman spectrometer sometimes complements that obtained from an infrared study and provides valuable structural information.